Effects of Natural Selection on Genetic Differentiation

Stephan 9407226 Studies of genetic variation and differentiation of natural populations are of critical importance for understanding the origin and patterns of biological diversity. One cause of genetic differentiation between populations is thought to be natural selection. In particular, directional selection may lead to rapid differentiation between subpopulations in a large, partially fragmented population. Drosophila ananassae, which exists in numerous semi-isolated subpopulation, will be used for testing this hypothesis. The degree of variation within and differentiation between subpopulations is determined at the molecular level by methods of DNA technology. The impact of selection (causing the observed pattern of variation and differentiation) is then inferred from these data by computer simulation and mathematical-statistical analyses. This study of genetic variation and differentiation is of direct interest to biodiversity and to variation in response to conditions of the environment.